NSF Young Investigator

The aspartate receptor will be used as a model system for transmembrane signaling. It will be investigated using solid state nuclear magnetic resonance techniques and mutant receptor proteins to determine critical distances and geometric relationships in the combining site and accessibility of solvent and ligands to the combining site. Clustering of the receptor protein will also be studied. The results should yield a visualization at the molecular level of the receptor binding site and the role of receptor clustering and conformational changes in the receptor binding process. %%% Signal transduction is essential to biological organisms or organelles for the sensing of the environment, reacting to it if necessary and in intercellular communication. This research will focus on understanding how membrane receptors transmit information across cell membranes. The goal is to determine how structures of specific regions or active sites of the receptor molecules in the membrane change during the signaling process. Both the biophysical approaches used in this study and the insight gained into the molecular mechanisms of signaling should be generally useful for understanding more complex membrane receptors.